Self Consistent Field Calculations of Molecular Properties (Postdoctoral Research Associateship in Computational Science and Engineering)

Almlof 9404902 The self-consistent-field (SCF) method is severely limited by the computational cost of assembling the Fock matrix. This research will address this problem by separating the long-range, classical electrostatic contributions to the Fock matrix from those involving local, quantum interactions. A portable, scable SCF code will be developed which will, for the first time, systematize the most demanding part of an SCF calculation.